Computer Science and Telecommunications Board Core Support

This grant provides continued partial core support of the activities of the Computer Science and Telecommunications Board (CSTB) of the National Academy of Sciences/National Research Council. The CSTB maintains a membership of national leaders who address the health of U.S. computer science, computing technology, telecommunications, and applications. The board has five basic functions: (1) Monitor and promote the health of computer science, computing technology, and telecommunications fields (including human resources and infrastructure); (2) Initiate studies involving those fields; (3) Provide advice to government, non-profit organizations, and private industry on computer and telecommunications systems planning, utilization, and modernization; (4) Foster communication among computer science, computing and telecommunications technologies,and other pure and applied science and technology; (5) Provide a base of expertise in these fields within the NRC.